Demographic Adaptation under Stress: The Mvskoke Confederacy1780-1910

Adapting to the stress of European contact and the accompanying epidemics and military confrontations, the Mvskoke Creek Indians lived in the Southeastern US until they were removed to the present state of Oklahoma in 1836. To preserve their society, they twice enacted new demographic regimes which were accompanied by a change in ethnic group membership. This project hypothesizes that the first regime, developed in the 18th century, was necessitated by the low fertility and high mortality of the frontier situation, and emphasized the acceptance of in- migrants from societies being fragmented and dispersed by the expansion of the colonial frontier, The second regime was enacted in Indian Territory where the possibilities for in-migration were limited, and this regime emphasized the attainment of a fertility level sufficient to balance mortality. These hypotheses will be tested by reference to nineteen censuses and enumerations of the Creeks taken from 1812 to 1910. Historical and ethnographic information will be used to put the enumerations into context, and to determine how cultural institutions were organized and reorganized to support the demographic regimes.